SBIR Phase I: Scalable, Parallel Automatic Mesh Generation

This Small Business Innovation Research (SBIR) Phase I project will develop technologies to
automatically generate large meshes appropriate for finite element and similar analyses.
This will be done using scalable, parallel algorithms that will enable the generation of
meshes on distributed parallel computers including workstation clusters. The result of
this project will be software that is capable of generating meshes with hundreds of
millions, or billions of elements in an efficient manner. The generated meshes will
already be partitioned to be compatible with the needs of parallel analysis codes.

The commercial applications of this research are in those industries that need to perform
large scale simulations of complex problems over general domains. The procedures to be
developed will allow simulation based design technologies to be applied to applications
that demand massive simulations.